Conference on Topology, Geometry, and Physics; May 2006; New York, NY

Abstract

Award: DMS-0540236
Principal Investigator: Robert D. Friedman, Peter S. Ozsvath

This is a proposal for a four-day-long, broad conference at
Columbia University on "Topology, Geometry, and Physics.'' The
conference will focus on the following major themes, and their
interconnections: hyperbolic manifolds and geometrization gauge
theory, three- and four-manifolds, Hodge theory, and interactions
between mathematics and modern physics. Such a conference is
particularly timely, in view of the many breakthroughs in each of
these subjects. In particular, the recent spectacular work of
Perelman on the Poincare conjecture and Thurston's geometrization
conjecture, as well as new developments in hyperbolic geometry,
make this an especially opportune moment to survey the new
landscape of three-manifold theory. At the same time, new
techniques of gauge theory and new combinatorial methods have
deepened the current understanding of three- and four-manifolds
and it is time to take stock of these developments and their
relation to other work in the field. Many of the new results in
geometric topology have been based upon ideas arising in
mathematical physics and geometric analysis, and these kind of
interactions will serve as a unifying theme for the conference.

A fundamental problem in mathematics is to describe all possible
shapes. In the case of surfaces (two dimensional objects),
possible shapes include a sphere (the surface of the earth, for
example), a torus (the surface of a tire) and more complicated
generalizations. A great deal of research has been concerned with
dimension three, the dimension of space, and dimension four, the
dimension of space-time. Because of its relevance to
understanding our physical world, understanding all possible
shapes in these dimensions is particularly
important. Paradoxically, these cases are much harder to
understand and to classify than higher-dimensional objects (which
in turn are much harder to visualize in any meaningful way). The
study of dimensions three and four has drawn on a rich variety of
mathematical and physical ideas. Recent work of a Russian
mathematician, G. Perelman, seems to confirm one of the famous
outstanding conjectures of topology, the Poincare conjecture
(which gives a complete characterization of the three dimensional
analogue of a sphere), as well as a profound generalization of
this conjecture, the geometrization conjecture of Thurston, which
gives in principle a scheme whereby one could describe all
possible three-dimensional shapes. A major goal of this
conference is to understand these new ideas, as well as other
recent work in dimensions three and four, and to evaluate our new
understanding of geometry and topology in these dimensions.